Extensions of Hilbert's Tenth Problem and Computational Aspects of Arithmetic Geometry

The investigator will work on two projects connected with number
theory and arithmetic geometry. The first project is to study
generalizations of Hilbert's Tenth Problem. The problem in its
original form asked for an algorithm to decide whether an arbitrary
multivariable polynomial equation with integer coefficients has an
integer solution. In 1970 Matiyasevich proved that no such algorithm
exists, i.e. Hilbert's Tenth Problem is undecidable. This motivated
studying analogues of this problem by considering equations and
solutions in other commutative rings. The biggest open problem in the
area is Hilbert's Tenth Problem over the rational numbers. The PI has
proved the undecidability of Hilbert's Tenth Problem for various
function fields. These generalizations have used tools from
arithmetic geometry, such as the study of rational points on elliptic
curves. One research goal is to extend these results and prove
undecidability of Hilbert's Tenth Problem for the function fields for which
the problem is still unresolved. The biggest open problems are
function fields of one variable over an algebraically closed field.
Another goal is to explore Hilbert's Tenth Problem for various
subrings of number fields. The second project is to study several
problems that deal with computational aspects of curves and their
Jacobians. Elliptic curves and, more generally, Jacobians of curves
of small genus have many applications to cryptography, and the second
project focuses on these applications. One goal of the second project
is to explore curves of small genus and work on constructing curves
that are suitable for cryptographic purposes. The PI will also work on
applications of pairings to cryptography.

Both projects involve studying the solutions to multivariable
polynomial equations. Looking for solutions to such equations over the
integers or rational numbers has a long history that goes back to
ancient Greece. For the first project the investigator will study the
fundamental question of whether it is possible to find a procedure
that determines whether an arbitrary multivariable polynomial equation
has a solution in a given number system. The second project focuses
on computational aspects of certain special classes of equations that
have applications to cryptography. For these applications one usually
looks for solutions to these equations over finite fields.